Identification and Analysis of a Potyviral RNA-dependent RNA-polymerase

Tobacco etch virus (TEV) is a member of the potato virus Y (potyvirus) group. Potyviruses are frequently encountered pests and result in significant crop loss. New sources of virus resistance are needed. The work detailed in this proposal will identify the virus gene product(s) involved in viral RNA replication. The plan makes use of a defined system to ask questions about the role played by the TEV polymerase during the template elongation reaction. The polymerase gene will be expressed in heterologous cell systems and polymerase activity will be purified and assayed in a cell-free system using defined TEV templates. Protein domains responsible for polymerase activity will be identified using immounological and molecular genetic approaches. Monoclonal antibodies will be used to identify domains when bound by antibody, eliminate polymerase activity. These regions become candidates for a molecular genetic analysis using site directed mutagenesis. Likewise, an attempt will be made to construct hybrid polymerase molecules using gene segments from two closely related potyviruses. Polymerase domains responsible for the template elongation reaction are proposed to be common between these two viruses should be interchangable. Successful completion of the plan should identify a virus specific product which can be targeted for disruption in the design of new resistance strategies. These studies are important, both in terms of their potential for eventual control of this enocomically important pest and as an resource extremely useful for comparitive studies of RNA replication factors.